Structure/Function Relations of Threonine-Metabolizing Enzymes

Amino acid metabolism, involving unusually diverse intermediates and/or products, is central to all cellular processes. Amino acids per se are the building blocks of proteins, and enzymes (which are nearly all proteins) are amazingly effective biocatalysts. The amino acid sequence of enzymes (proteins) specifies conformation; catalytic function arises from conformation which, in turn, relates to the binding of substrate molecules in precise orientation and to the stabilization of transition states. Multiple techniques can now be used to explore the molecular basis for specific enzymic function and to modify enzymes in specific ways. The objective of the proposed of the proposed research is to study structure/function interrelationships of 2-key enzymes involved in L-Threonine metabolism. L-Threonine dehydrogenase and 2-amino-3- ketobutyrate lyase, enzymes we first succeeded in purifying to homogeneity, will be the objects of in depth structure\function studies. This dehydrogenase and lyase, in sequences, are the first two enzymes in the primary route for threonine utilization by both eukaryotes and prokaryotes. By the action of these two enzymes, L- threonine is first oxidized to the unstable intermediate, 2-amino- 3-ketobutyrate, which in turn is cleaved by the lyase in a coenzyme A-dependent reaction yielding acetyl CoA plus glycine. Threonine dehydrogenase is one of a number of gene products whose level has been shown to be regulated by leucine-i.e. it is a member of the so-called leucine regulon. We proposed studying these two pure enzymes, with primary emphasis on the dehydrogenase and secondary emphasis on the lyase, but selective chemical modification/inactivation experiments, by isolating and sequencing peptides containing these modified residues, and thereby establish their position in the primary structure of the molecule. Since the genes for both of these enzymes have recently been cloned and the primary structure of each enzyme is now known, site-directed mutagenesis of specific amino acid residues will be carried out and the effects of such changes on the enzyme's catalytic/regulatory properties examined. Attempts will also be made to crystallize this dehydrogenase (primary effort) and lyase (secondary) for subsequent 3-dimensional structure determination by X-ray crystallographic techniques. The goal are to relate specific enzyme catalysis/regulation with protein structure and to understand enzymic processes in sufficient detail so that, long range, modern metabolic and protein engineering is possible. %%% Advances made by studies such as this are significant in that a thorough knowledge of metabolic/enzymic processes allows for modern metabolic/protein engineering. By such engineering pathways may be altered to remove a poisonous product, introduce a new pathway, and /or enhance production of a commercially important material.